Engineering Research Equipment: Image Analyzer and Light Scattering Device

The equipment requested will be used for several projects, including: Structure and Dynamics of Antigen-Antibody Complexes; Applications of Antibody Engineering; Protein Engineering of Allosteric Antibodies; Protein Separations Utilizing Temperature Sensitive Microemulsions; Engineering Protein Crystallization Processes; Mechanisms of Neurite Outgrowth and Guidance; Development of Hepatocyte Long Term Culture and Storage Techniques; Cellular and Developmental Biology in Plant Cell Cultures; and Immobilized Recombinant Cells. The wide dynamic range offered by the combination of the two instruments, and the simultaneous use of the instruments in certain projects, will allow for an enhanced understanding of underlying biochemical and biophysical phenomena.